Topics in Theoretical Computer Science

This project addresses some open questions in several domains of theoretical computer science: probabilistic methods, parallel computation, and computational and combinatorial geometry. The problems are related because they will be attacked by similar mathematical methods, principally tools from combinatorics and probability. The progress that is made will either generate more efficient algorithms for the tasks in question, or else provide lower bounds that highlight features of the underlying structure of the problems.